Using Process Tracing to Understand Decoy Effects in Decision Making

The PIs propose to investigate "decoy effects," which are the influences that a new alternative has when it is added to a set of options from which a person has to make a choice. Occasionally such decoys have quite paradoxical effects, such as increasing the likelihood of choosing an original member of the set. The investigators will use techniques which assess the information- gathering processes used by persons in such decoy effect experiments. Eye movement monitoring will also be done. A total of twelve experiments are proposed.